NSF Showcase for DUE Projects at the ACM SIGCSE Conference

This project supports recipients of the National Science Foundation Division of Undergraduate Education grants to present their research to the wider computer science education community. These presentations take place at the ACM Special Interest Group on Computer Science Education (SIGCSE) Symposium. The showcase has successfully helped the dissemination of research projects in the CE-21, TUES, and other DUE programs directly to thousands of CS educators.

In addition, the showcase holds "office hours" with NSF program officers, providing potential proposal writers an opportunity to gain feedback on their ideas and general guidance regarding the proposal creation and submission process.